PostDoctoral Research Fellowship

This award is for a postdoctoral fellowship. The investigator will explore the inconsistency in paleoclimate records derived from ice cores in Greenland and glacial equilibrium line altitude depressions in mid- and high-latitude regions. She proposes to do the first surface exposure dating on glaciers in eastern Greenland, and through comparison with Greenland ice cores will determine if the discrepancy exists within Greenland-based climate records. Detecting such a discrepancy would suggest that ice cores and ELA depressions measure different climatic signals, whereas finding no discrepancy would indicate a difference in climate between Greenland other high-latitude regions like Europe.